Doctoral Dissertation Research: Solar Energy Adoption and Diffusion in Sri Lanka: An Analysis at Multiple Scales

This research examines solar energy technology diffusion in rural Sri Lanka,
one of the fastest-growing solar energy markets in the World. Solar
photovoltaic systems produce electricity without emitting the pollutants and
climate-changing gases associated with electricity production by more
pervasive fossil fuels, and are beginning to find a niche in rural areas in
developing countries that do not have access to grid electricity. This
research will discover the social, infrastructural, market-related, spatial
and environmental factors that best explain why solar home systems (SHS) are
being adopted quickly in some parts of the country, and more slowly in
others. It is essential that we understand what factors most influence
acceptance and adoption of sustainable energy technologies in different
geographic contexts, in order to create more effective policies that better
meet all peoples' need for efficient, reliable and environmentally-sound
energy services.

This project will also discover the factors that affect how different
individuals: come to know about SHS; develop opinions of SHS; decide to
adopt SHS; implement the decision to adopt SHS; re-evaluate their decision
after adopting SHS; and are differently impacted-upon by adopting SHS or by
the SHS adoption process within their community. Factors that will be
investigated to explain variation in SHS adoption behavior and in the
impacts of SHS adoption among different people include: characteristics of
their personal social networks; the level of trust in their relationships
and in their community; the behavioral norms and the strength of sanctions
on behavior within their social network and in their community; their wealth
class; their ethnicity; their gender; their occupation (or livelihood);
their access to outside information; availability of the technology; and
their access to low-interest loans that facilitate SHS purchase.
Understanding the diverse adoption behaviors and experiences of the SHS
adoption process among different types of people in a community will draw
policy-makers attention to the fact that the diffusion of this innovation
affects different people's lives in different ways. Energy service delivery
programs and policies must therefore be crafted in light of detailed
information at the personal level to ensure that all members of a community,
especially those most disadvantaged, have access to and benefit from
essential energy services. This NSF-funded research not only will produce
knowledge that helps forward the interests of American companies active in
Sri Lanka and other growing solar energy markets, but more importantly, it
helps fulfill our responsibility to create opportunities that improve
people's lives in a post-conflict state.